An Experimental-Numerical Investigation of Unsteady Partially Premixed Flames

Abstract - Puri This is an experimental and numerical investigation of transient effects on the structure and stability of partially premixed hydrocarbon-air flames. The dominant reaction pathways, and their dependence on the elvel of premixing, are identified for both steady and unsteady flames in both coflow and counterflow configurations. The effects of perturbing the inner layer through acoustic forcing of specified amplitude and frequency on the distributin of carbon monoxide and hydrogen as well as on the reaction rates of these species and the heat release rates are examined. Similarly, the effects of perturbing the outer layer on ignition and heat release are quantified. Parametric comparisons between sealar profiles and reaction rates in coflow and counterflow flames are performed. Experimental measurements include velocity, species, temperature measurements, and high-speed videography of flame unsteadiness.